Studies of Hadroproduction of Heavy Flavors at Fermilab (Physics)

This award will provide funds to a group at Illinois Institute of Technology for continued research in Elementary Particle Physics at Fermilab (E-791). The experimenters will study, in the Tagged Photon Laboratory (TPL), the hadroproduction of charm and beauty particles. The statistics of charm particles in this experiment will represent an order of magnitude improvement over previous results (E-769), allowing a study of rare charm meson and baryon decays. It will provide a better understanding of charm production and will make progress towards beauty physics in a hadron environment. The group will also participate in the design of a planned detector (BCD) for a dedicated B physics experiment at the Fermilab Tevatron proton-antiproton collider. In addition, the group will complete the analysis of pictures, taken in the Fermilab 15-ft. bubble chamber, of high energy neutrino interactions. These interactions have been particularly useful in studying the properties of particles containing heavy quarks.